Modeling Materila Failure in High Strain-Rate Problems

Modeling Material Failure in High Strain Rate Problems

R. C. Batra
Virginia Polytechnic Institute and State University

An hyperbolic heat equation along with the equations expressing the
balance of mass, linear momentum and moment of momentum for
thermoviscoplastic materials will be used to delineate the initiation
and propagation of adiabatic shear bands (ASBs) during high strain rate
deformations of such materials. An ASB is a narrow region of intense
plastic deformation that usually precedes the ductile failure of most
metals and some polymers deformed at high strain rates. The heat
generated due to plastic deformations of the material, heat conduction
and thermal stresses induced will be accounted for. The finite element
mesh will be refined adaptively and the time increment used to integrate
the coupled nonlinear ordinary differential equations obtained by the
Galerkin approximation of the governing equations will be adjusted
adaptively so as to compute the stable solution within the prescribed
accuracy. The energy dissipation rate within the shear banded material,
rate of energy conducted out of the edges of the band, and the energy
used to raise the temperature of the shear banded material will be
computed during the development of the shear band. Its speed will be
ascertained by locating its edges at different times.

By modeling an ASB as a singular surface, we will determine its speed of
propagation and compare it with that computed above numerically. It
should be noted that an ASB is not a wave in the classical sense and it
propagates edgewise rather than normal to its surface. This speed will
be related to the state of deformation of the material within and
adjacent to the edge of the ASB.